Computerized Experimental Workstation for Undergraduate Physics Laboratory

This project will provide a computer based experiment controlled, data acquisition, data analysis system which will interface directly with experiments performed in the laboratory portion of a sophomore Modern Physics course. The computer will be equipped with a printer and a plotter. A system of analog and digital input/output interface cards manufactured by MetraByte which plug directly into the expansion slots of the computer will be used to connect the experimental apparatus to the computer. Auxiliary equipment which conditions the signals generated by experimental transducers so that they will be compatible with plug-in cards will also be obtained from MetraByte. Software for programming the instrument will be a combination of card specific software from MetraByte and the high level languages of Pascal and Basic. This project will significantly improve the laboratory environment for the students in Modern Physics. In addition to performing classical experiments they will gain experience in utilizing modern techniques and equipment in the laboratory. The University will match the award with an equal amount of funds.